PYI: Development of Efficient Serial and Parallel Algorithms Based on Mathematical Programming Theory

Efficient serial and parallel algorithms, backed by a mathematical programming theory, are developed. Emphasis is placed on effective distribution of constraints among processors as well as line-search stabilization techniques nonlinear complementarity and other problems. Finite termination of algorithms via weak sharp minima and related concepts will investigated.